Strategic Planning's Role in Establishing University Policies and Plans for Teaching, Research and Service

9320680 Taylor STRATEGIC PLANNING'S ROLE IN ESTABLISHING UNIVERSITY POLICIES AND PLANS FOR TEACHING, RESEARCH AND SERVICE Universities are under pressure to contain costs as a result of declining revenue growth and competing priorities. Also, universities are being criticized by the public for neglecting undergraduate students in favor of research activities. With cost containment and reallocation counterpoised against calls for research investment, and with old assumptions being questioned, higher education officials are searching for techniques to maintain the quality of their programs while stabilizing or downsizing their institutions and controlling costs. This study seeks to extend earlier research by determining the role institutional planning plays with respect to fundamental mission issues affecting graduate, research universities. The study will examine a set of issues and planning processes at the institution, college and department levels at ten Carnegie Classification Research I universities, five public and five private. Data collection will include institutional planning documents, research policies, organizational charts, annual reports from engineering and science departments, and related documents. Selected institutional officials will be interviewed concerning planning approaches and institutional mission. A survey will be repeated (Larson, 1987) to detect any changes in planning organization, policies, plans and attitudes that facilitate or detract from engaging in strategic planning. A content analysis approach will be used to analyze the data collected from the interviews and institutional documents. A test of statistical differences will be applied on all survey items for any significant changes between the Larson survey and the survey in this study.